Optical Coherence Microscopy in Developmental Biology

PROJECT SUMMARY An optical coherence microscope (OCM) will be designed and constructed to study fundamental problems in developmental biology. The microscope will be capable of imaging cells located up to one millimeter below the surface of living tissue, even though light scattering in the specimen would render it opaque to a conventional or confocal light microscope. Depth penetration is achieved by use of a near infrared superluminescent diode light source with a coherence length of 20 um together with a coherence gate based on a Michelson interferometer. This combination excludes light back-scattered from out-of-focus planes, giving a depth resolution of 10 ~m. Lateral resolution of 10 um or better is achieved by focusing the illuminating beam down to a small spot. Two-dimensional lateral scanning of the beam spot produces an optical section at a fixed depth in the sample. A three-dimensional image is obtained by stacking successive optical sections at different depths. Such three-dimensional scans should take less than a minute. OCM will be used to study two key systems in developmental biology, the frog Xenopus laevis and the plant Arabidopsis thaliana. In the frog embryo, the processes of gastrulation and neurulation will be monitored in real time. Specifically, the relative motions of the surface cells (ectoderm) and deeper cells (mesoderm) will be followed to better define the spatial relationships between the responding and signaling cells during interactions critical to neural patterning and to better characterize the segmentation of the mesoderm into axial and paraxial structures. These events occur several hundred micrometers into the embryo, at a depth inaccessible to a confocal microscope because of multiple scattering. In Arabidopsis, embryo formation o ccurs deep within maternal tissues and is therefore inaccessible to confocal microscopy. OCM will be used to observe plant embryo development in vivo (in the seed-containing silique) for the first time. Two specialized embryonic tissues, the shoot and root meristems, somehow direct the plant's subsequent embryonic and post-embryonic development. Wild-type and mutant Arabidopsis plants will be used to study the role of the shoot apical meristem in embryonic development. Post-embryonically, the shoot apical meristem directs the pattern of leaf initiation (phyllotaxy). The role of the meristem in initiation of such patterns is hidden by overlying leaves. With OCM it will be possible for the first time to observe in real time the earliest morphological changes associated with phyllotaxis. These observations of morphology will be correlated with genetic analysis and other experimental manipulations to probe the fundamental molecular mechanisms underlying plant development. A collaborative team of faculty with backgrounds in biology, biophysics, computer engineering, optical sciences, and physics will direct the research program, with extensive participation of undergraduate students both during the summer and throughout the academic year. In addition to the specific research goals described in this proposal, another key objective is to engage undergraduates in significant research projects that will help prepare and motivate them to pursue careers in multidisciplinary activities in science and technology.